Combinatorial set theory

Cummings proposes a program of research in combinatorial set
theory. The areas to be investigated include polychromatic
Ramsey theory (in both the finite and infinite settings),
combinatorial principles such as diamonds and squares, and the
structure of uncountable linear orderings with forbidden
suborderings. A unifying theme is the tension between
compactness and incompactness.

Combinatorial set theory is the study of structured sets, for example
graphs, trees and orderings. These sets can be finite or infinite, and
historically finite and infinite combinatorics have been rather
separate; however recently there have been striking applications of
infinitary methods to solve problems about finite sets.
Progress in this research program should find applications to set
theory, logic, combinatorics and topology.